Research Experience for Undergraduates in the Scientific Application of Neutrons

9424181 Ross The Research Experiences for Undergraduates Site will be continue at the University of Missouri Research Reactor. This will give the participating students the opportunity to join a varied research program that incudes both basic and applied studies. Several journalism students will join the group and participate in the research programs. ***